US-Turkey Planning Visit: Development of International Research Project on e-Manufacturing Design and Service

0225026
Koc

This award is to support travel of Dr. Muammar Koc, Associate Director, Center for Intelligent Maintenance Systems, an NSF Industry/University Cooperative Research Center at the University of Wisconsin at Milwaukee, to Turkey. He plans to meet with scientists at two Turkish universities to work on plans to finalize collaborative development of a multi-year, multi-university, and multi-disciplinary program in the area of web-enabled e-manufacturing/e-design, and e-maintenance/e-service. His counterparts are Dr. Haydar Livatyali, Assistant Professor, Mechanical Engineering Department at Istanbul Technical University and Dr. Turkay Dereli, Chairman, Department of Industrial Engineering, University of Gaziantep.